Mathematical Sciences: Inversion and Observability of Parabolic Initial Value Problems

The inverse problem of determining the initial boundary conditions of a system evolving in space and time from incomplete observations of the system at various points interior to the spatial domain, is of considerable importance in many engineering and scientific applications. This project deals with a selection of theoretical and numerical aspects of these problems for certain classes of parabolic partial differential equations. Determination of surface temperature and heat flux from a finite set of interior temperature measurements stable under noisy data will be investigated. Theoretical and numerical analysis of methods involving eigenfunction expansions of initial data and Whittaker Cardinal expansions of initial boundary data will be studied.